Studies on the Role of Adenovirus Elb Oncoprotein in Gene Expression

This proposal presents experiments to delineawte the function domains of the adenoviral encoded 21 kDa E1B protein required, along with adenoviral E1A protein and the 55 kDa E1b protein for cellular transformation. Evidence suggests that this protein leads to increase levels of another adenovirus mRNA that encodes a viral capsid protein, polypeptide IX (pIX). The 21 KDa E1B protein is also known to stabilize DNA in transfected and infected cells. The experiments presented are designed to determine if the E1B protein also activates gene expression using the already well studies pIX transcription unit. The function of the 21 kDa E1B protein during oncogenesis is unknown and its contribution to cellular transformation in the presence of adenovirus encoded E1A proteins and the 55 kDa E1B protein is also unknown Therefore, the possibility that this protein activates gene expression will be analyzed and the role of this activity in transformation will be examined. The functional domains of the 21 kDa E1B protein will be mapped using deletional analysis and examines for activation of pIX gene expression in transient expression assays. The pIX promoter region will be altered to test for activation by the E1B protein.m If confirmation of pIX gene activation by E1B protein is obtained and a specific domain of the E1B protein that mediates this activity is identified, then this domain will also be tested for DNA stabilization property and transforming ability using appropriate viral constructs. The possible affects of the 21 kDa E1B protein on the retention of proteins bound to the pIX promoter will be examines using gel retardation assays. Extracts from uninfected and infected cells will be compared for differences in retardation of a DNA fragment containing the pIX promoter region. Identification of the proteins involved in retarding the pIX promoter DNA will be performed using competing oligonucleotide containing the already identified pIX promoter elements. The ultimate goal is to determine if E1B protein does activate gene expression, if this activity correlates will transforming activity. These analyses will provide the foundation for extended analyses of the mechanism by which E1B protein activates pIX gene expression in a system defined in vitro. This research may apply to the means by which the 21 kDa E1B protein participates in cellular transformation.